The Versatility of FT-NMR Spectroscopy in the Undergraduate Curriculum

The university is vitalizing its chemistry program with the incorporation of modern instrumentation at all levels of instruction. It has recently added an FT-IR to existing holdings that include a GC-MS, UV-visible spectrometer, spectrofluorometer, and high-performance liquid chromatograph. This project specifically addresses the need for a Fourier Transform Nuclear Magnetic Resonance Spectrometer and explains its integration into the curriculum, which is designed to prepare undergraduate students for graduate school and chemical industry positions.